Tectonic Exhumation in an Arc-Continent Collision, Taiwan, Republic of China

9706801 Byrne The role of normal faulting in the exhumation of high-grade metamorphic rocks in convergent orogens is an important unsolved problem. Taiwan provides a valuable opportunity to study the relation between contraction and extension and the processes of tectonic exhumation because the orogenic belt is active, and because the obliquity of the collision also results in a time-space equivalence that permits different veins of the orogenic belt as it evolves. This project involves documentation of the distribution of contractional and extensional structures in southernmost Taiwan and testing of several proposed models. Results will be applicable to regional-scale tectonics of Taiwan and to other convergent margins.